Instrumentation for Undergraduate Instruction in Chemistry for Science, Technology and Communications

Modern instrumental techniques including ultraviolet-visible spectroscopy, infrared spectroscopy and gas chromatography are being used by the Chemistry Department at Columbia College for the undergraduate instruction of students majoring in the communications professions. The theme of science, technology, and communications provides a focus for instruction in basic science which is integrated with the students' communication specialties through the preparation of videotapes or films on individual research projects. A project objective is that students, in their future careers in communications, will be able to use their scientific training to report more effectively to the public on matters of science and technology.